Youth Experiences in Science (YES)

9355740 Ponzio The Youth Experiences in Science (YES) Project of the 4-H Center at UC, Davis will produce, pilot and evaluate an informal science education curriculum expressly designed for 5-9 year olds in school-age child care (SACC) settings. Seven thematic units will be developed (three in both English and Spanish versions), utilizing the basic design process and instructional model developed in the earlier SERIES Project. Each unit consists of engaging hands-on activities performed with inexpensive materials and incorporating home and neighborhood service applications. During the three years approximately 500 teenage volunteers will deliver the program to approximately 2,500 children through a network of existing SACC sites operated by 4-H and other community groups. Capitalizing on SACC settings, the program will collaborate with schools and reach out to parents through development of "Science Family Backpacks" and "Science Family Activity Nights." Program evaluation includes in-depth monitoring and use of multiple assessment instruments and measures at 25 selected sites. In addition to formative and summative evaluation, data will be available on parent involvement and the amount, nature, and durability of positive influences on participants' school science interest and success. ***